International Meeting on Statistical Climatology

PI: Petter Guttorp Proposal Number: DMS 9725031 Project: International Conference on Statistical Climatology Abstract: This International Conference on Statistical Climatology, the sixth that has been held since 1979, will be held from May 25 to 29, 1998, in British Columbia. This series of international conferences has brought together statisticians and climatologists for both formal and informal discussions of problems and statistical methods for addressing them. There are two invited lectures per day, each with discussions by both statisticians and climatologists. This format promotes cross-disciplinary interactions and collaborations. Many of the leading issues in climatology are related to general circulation models. The major problem of interest is in comparing model runs to historical data, which have varying spatial and temporal coverage, varying instrumentation, and very different precision. These models are used to assess the effect of various anthropogenic influences on the climate, such as changing composition of various greenhouse gasses. Important topics to be discussed at this conference are the statistical techniques such as hiden Markov models, wavelet methods, and neural networks that can be used in developing useful models. This award is in support of expenses of participants from the United States. A large portion of the grant will go towards expenses of graduate students, new researchers, and members of underrepresented groups.